Geological Society of America Penrose Conference: Cordilleran Metamorphic Core Complexes, Revisited; September 14-17, 1987; Elko, Nevada

The purpose of this action is to provide funds to partially support invited, non-North American participants and selected graduate students to attend a Geological Society of America Penrose Conference entitled "Cordilleran metamorphic core complexes, revisited: implications for crustal extension and shortening in the North American Cordillera." The conference will be held September 14-17, 1987, in Elko, Nevada. A two- day field trip (9/12 - 13) will precede the conference and begin from Salt Lake City, Utah. The convenors for the conference are Arthur W. Snoke, University of Wyoming; Gordon S. Lister, Monash University, Australia; and Charles H. Thorman, U.S. Geological Survey.